Revitalizing Calculus: Using Technology to Improve Learning

9452141 Sweeney The Mathematics Department at Russell Sage College is establishing a computer equipped combination classroom/laboratory for improving instruction and learning in the lower division major mathematics sequence. The equipment is necessary for the complete revision of the calculus, linear algebra, and differential equations curriculum and makes the computer the tool of first choice in problem-solving and mathematical investigations. The revised curriculum requires that problem solving, problem formulation, concepts and insight replace the tedious and repetitive manipulations common in current curriculum. The equipment and revised curriculum aid this all- woman institution to encourage more women to attempt the study of calculus and better assist those who do. The laboratory requires 16 Macintosh Centris 650's each equipped with 12 megabytes of main memory, 120 byte hard-drive, color monitor, and MATHEMATICA. The laboratory also contains 4 Apple Laser Pro 630's and a Centris 660AV which networks the computers together